Finite-Element Reliability Methods

Finite elements and structural reliability into a comprehensive methodology for safety and reliability assessment of non-linear structures with uncertain characteristics and subjected to random loads with spatial and/or temporal stochasticity. Reliability and safety assessment of flexible offshore and aerospace structures, mechanical components in ground and space vehicles, and large- deformation base-isolated systems.